SDCI NMI Improvement: Strengthening the Foundations of Federations for Science and Collaboration

National Science Foundation
NSF Software Development for Cyberinfrastructure (SDCI) Program
Office of Cyberinfrastructure

Proposal Number: 0721896
Principal Investigator: Kenneth Klingenstein
Institution: University Corporation for Advanced Internet Development
Proposal Title: SDCI NMI Improvement: Strengthening the Foundations of Federations for Science and Collaboration

Abstract

This project addresses emerging federated R&E infrastructure through improvements to Shibboleth, Signet, and Grouper. Grouper and Signet are tools addressing authorization support via group and privilege management. Shibboleth is a SAML based framework for inter-institutional federation of resources. The work applies these tools for virtual organization support and establishes a VO service center to drive VO deployment and support across campuses. Outreach and dissemination efforts also continue under this work. New use cases driving tool enhancements include VO-related needs in application and network monitoring.